Toughness, Strength, and R-Curve Behavior of Microcracking Materials (Materials Research)

This research is continuation of work (previous research under DMR-8305800) on understanding the toughness and stress- induced microcracking of ceramic materials. The investigation emphasizes the following topics: 1) computer computation and modelling of the growth of cracks in ceramics which incorporates the important physical materials parameters, 2) characterization of ceramic-glass composites systems which demonstrate stress- induced microcracking using small angle neutron scattering, 3) study of the strength-toughness relationships for ceramics and ceramic-glass composites. In multiphase ceramic materials, microcracking is common, especially when there is a pronounced difference in the coefficient of thermal expansion between the several phases present in the material. This phenomenon can be used to tailor the mechanical behavior of the material, by proper selection of the various phases, to allow elimination of the microcracks or introduction of the microcracks in the vicinity of regular cracks as desired. The presence of microcracks can often reduce the stress intensity at the tips of regular cracks, and thereby cause the regular cracks to stop propagating. This phenomenon causes the ceramic to be tougher in service, and less susceptible to catastropic failure under stress. The present research is designed to increase understanding of the phenomenon, and allow design of tougher ceramics.